Coordination Complexes with Multiple Inorganic Functional Groups

This award funded through the NSF Chemical Synthesis program supports work in the research group of John F. Berry at the University of Wisconsin--Madison aimed at using multiple inorganic functional groups to promote multi-electron processes. Here an "inorganic functional group" is defined as a unit capable of at least one redox reaction. Thus, combining multiple functional groups should lead to the observation of multiple redox reactions available to the same molecule. For example, a compound having a Mo(II)-Mo(II) quadruple bond 'functional group' can undergo two-electron oxidation to yield a triply-bonded Mo(III)-Mo(III) species, and a metal-oxo 'functional group' can undergo two-electron oxygen atom transfer processes. These two functional groups can be combined in such a way as to permit reversible four-electron redox and O-atom transfer reactions to take place. In this work, the exploration of compounds that combine inorganic functional groups will provide a pathway towards the discovery of new multi-electron reactions. The inorganic functional groups to be studied range from metal-metal multiple bonds, including metal oxo, carbene, and nitrido compounds, to heterometallic species in which each metal serves as a separate functional group.

Multi-electron reactions are very important in chemistry as well as in biological processes. For example, multi-electron reductions of molecules such as molecular oxygen are not only biologically important, occurring in aerobic respiration, but also play key roles in important energy-related technologies, such as fuel cells and water splitting. A fundamental challenge in the chemical community is to improve the efficiency of such multi-electron reactions. New ways to facilitate multielectron chemistry are of great significance, and this award supports a conceptual advance aimed toward the discovery of new multi-electron reactions. This advance involves combining traits of different transition metal compounds, each individually capable of electron transfer, into new compounds able to perform multi-electron transfer.